Concentration Phenomena In High Dimensions and Applications to Randomized Models

This project addresses several challenging problems about high-dimensional probabilistic
objects, that are related to the concentration phenomena. Part one is devoted to the study
of probability distributions on linear spaces under certain convexity hypotheses of the
Brunn-Minkowski kind. It focuses on general dimension free geometric and analytic
properties of measures with heavy tails, expressed in terms of dilation, isoperimetric,
and weighted Sobolev-type inequalities. The uniform distribution of mass in a convex body
and more general log-concave distributions describe another important family in the
hierarchy of convex or hyperbolic measures. As a closely related direction, the PI is also
planning to consider some new aspects of the concentration phenomenon on product
spaces of a large dimension. Part two deals with applications of different concentration
phenomena to the randomized models, such as a partial summation of data, spectrum of
stochastic matrices, etc., under minimal assumptions on the dependence of the observed
random variables. Of a particular interest is an asymptotic behavior of typical distributions,
resulting in a given randomized scheme. Part three is devoted to analysis of geometric
characteristics of Markov kernels and associated random walks on graphs and other
discrete structures. Discrete isoperimetric and modified forms of logarithmic Sobolev
inequalities are planned to be considered in connection with the problem on the rates of
the convergence of the Markov semi-groups.

The study of the concentration phenomena is strongly dictated by various problems
of Probability and Statistics on general global properties of stochastic processes.
The Asymptotic Convex Geometry is another field, where a number of hard problems
about high-dimensional convex bodies appeal to the concentration results and techniques.
This study is also stimulated by problems in Combinatorics and Computer Science
(such as computation of the volume) and in Mathematical Economics (optimization of
the transport costs). The present proposal continues research in this direction and is aimed,
in particular, to explore the role of the weak dependence in concentration phenomena,
as well as its range of applicability in spaces of large dimensions.